Undergraduate Aerodynamics Laboratory Enhancement

An integrated wind tunnel and data acquisition laboratory which allows undergraduate mechanical and aerospace engineering students to study aspects of classical and modern aerodynamics is established. The laboratory includes a low turbulence wind tunnel which is designed for experiments involving both laminar flows and flows which are in the process of transition to turbulence. Facilities which can produce the high flow quality necessary for modem aerodynamics experiments are usually reserved for graduate research. The wind tunnel features interchangeable test cells measuring 750 mm X 750 mm in cross- section that allow experiments to be set up without disrupting concurrent wind tunnel testing. In addition, modern instrumentation interfaced to a computer based data acquisition system allows students to acquire, process, and interpret experimental data for a variety of fundamental experiments. This will serve to reinforce basic concepts studied in pure engineering science courses in addition to teaching students modern experimental methods.